Foraminiferal Biostratigraphy and Time-Stratigraphic Frame- work of Middle and Upper Mississippian Rocks in the SouthernAppalachians

The Mississippian System in the southeastern U.S. represents the interaction between two main paleotectonic and paleogeographic realms, a carbonate dominated one associated with the craton and a terrigenous realm associated with extracratonic sources. The research seeks to establish a detailed foraminiferal biostratigraphic zonation leading to an integrated time-stratigraphic/facies framework for Middle and Upper Mississippian rocks in the region. Results of the study will allow determination of mutual relations between facies extending across the broad region encompassing the southern Appalachians, southern Cumberland Plateau, and Black Warrior basin. This work will provide information for analyzing the paleogeographic and paleotectonic evolution of the southern Appalachians and will provide important data regarding the nature and position of the Mississippian-Pennsylvanian boundary.